Upgrading of Shared Computing Equipment in Geophysics

0926762
Shearer

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5). Granted funds will support upgrade of compute facilities at the Institute for Geophysics and Planetary Physics (IGPP) at the Scripps Institution of Oceanography. Upgrades will include purchase of multiple new MacPro desktop computers with massive random access memory, two XServe servers and an XServe 16 TB RAID disk array. The enhance compute capacity will benefit a large number of of faculty at IGPP for NSF funded studies ranging from electromagnetic exploration for mantle melts and oceanic crustal fluids, to seismologic imaging of continental rifting processes to space geodetic studies of crustal and cryosphere dynamics. Broader impacts include the tradition IGPP excellence in graduate student mentorship and the large base of NSF supported scientists with IGPP that will benefit from the requested upgrade. Requested upgrades include Macintosh compute platforms (a U.S. company).

***